Oceanographic Instrumentation for the R/V Savannah

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

A request is made to fund additional and back-up instrumentation for the R/V Savannah. The R/V Savannah is a 92 foot coastal research vessel operated by Skidaway Institute of Oceanography as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The request includes four items listed by priority:
1) Fluorometers
2) Suite of Net Systems
3) Grab Systems
4) Pinger/Transponders

Broader Impacts: The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers. The addition of the shared use underway sensors and sampling equipment will provide an important upgrade to the coastal observing capabilities of the R/V Savannah.